2nd International Conference on Pathways, Networks, and Systems: Theory and Experiments; October 15-20, 2004; Heraklion, Greece

ABSTRACT
NSF-0439955

Systems biology seeks to understand fundamental mechanisms of organismal biology in humans and other species at the level above individual reactions and structures. Large, complex data sets must be obtained at various levels of biological functions from transcription to end-phenotypes. This involves not only heterogeneous data but these studies must also include time-series and perturbations as they must assess homeostasis and genetic variation. Computer science, statistical and analytical methods must all be developed and applied for managing, distributing, representing, analyzing and modeling these large complex datasets. Networks and pathways must be determined and then annotated with genetic, molecular, biological and pharmacological attributes. Finally, networks and pathways must be engineered to test hypotheses about systems biology in complex organisms.

Because the field is inevitably interdisciplinary, many different kinds of effort are required. This is the second year of the conference, with an agenda based on identifying theoretical and experimental platforms for systems biology. Members of underrepresented groups are actively encouraged to attend and present, including students. Sponsors of the conference include the Center for Computational Genomics and Systems Biology (J. Nadeau, CWRU, Cleveland), the Institute for Systems Biology (L. Hood, Seattle), Systemscope (M. Roux and C. Auffray, Paris), Center for Bioinformatics and Systems Biology (S. Surbramaniam, San Diego), and the Keck Graduate Institute (D. Galas, Claremont).